CAREER: Semiconductor Lasers Without Population Inversion

The primary goal of the proposed research is to demonstrate the first laser device that operates without population inversion, thereby resolving the ongoing discussion regarding the necessity of inversion. The system considered here is based on intersubband transitions in semiconductor heterostructures. If successful, the proposed device will present a breakthrough in the search for coherent optical devices in the mid-infrared region of the electromagnetic spectrum. Due to the difficulty of inverting the subband populations, laser devices in this region- with important applications in atmospheric sensing and pollution monitoring- have so far been elusive. Therefore, the class of inversionless laser amplifiers and oscillators that we propose to demonstrate will provide a new perspective on how to make infrared lasers that are compatible with the semiconductor technology. The implications of the proposed research is therefore twofold: 1) The first experimental demonstration of a new principle that alters the way we think about lasers; and 2) A novel approach to the realization of lasers and nonlinear infrared sources with wavelengths in the 2 micrometers to 100 micrometers region.